A Mediterranean Undercurrent Seeding Experiment

In this project, PI's will study the dispersion of Mediterranean Water into the North Atlantic by seeding the Mediterranean Undercurrent near its source with lagrangian drifters. Forty RAFOS floats will be tracked for a period of eighteen months, with the principal objective of distinguishing between the formation of Mediterranean mesoscale eddies (Meddies), and simple advection/ diffusion. In a collaborative study, scientists from Portugal will carry out hydrographic surveys and maintain an array of current meters in the region.